MGR Honorable Mention: Monica Aparicio

This special award will give Ph.D student Monica Aparicico additional flexibility in pursuing her graduate studies and research initiation in psychological research. This award will strengthen minority participation in research in this area.